Machine Learning Techniques to Improve Storm-Scale Data Assimilation

Short-term weather model forecasts are strongly influenced by how numerical models integrate real-world observations through a process called data assimilation (DA). This project will investigate whether Machine Learning (ML) techniques can be used to improve the data assimilation process, especially for weather radar observations. This work is especially critical for severe weather forecasting which has significant public safety and economic impacts. The project will also contribute to workforce development through student engagement.

Current techniques for assimilating radar data have significant weaknesses in terms of how the relative weighting between the model background and observations occurs. This project advances convective-scale DA by introducing an ML-guided adaptive inflation method that directly addresses under-dispersive ensembles in storm regions. By learning flow-dependent, variable aware bias fields from radar innovations and ensemble backgrounds, the method restores effective variance and preserves cross-variable balance, enhancing the impact of radar observations. This innovation provides a physically consistent, computationally efficient pathway to improve ensemble DA analyses and short-range forecasts of severe storms.